New Data Processing Techniques for Seismological Studies of Deep Earth Structure

This research is to further develop and utilize matched filter techniques to study deep earth structure by improved measurement of travel times, seismic Q, and dispersion and attenuation of surface waves including higher modes of the earth. The work, while in the high-risk category as are most new theoretical developments, has the potential to be a logical and powerful extension of normal mode studies. The impact of the new techniques, if successful, will be important to determinations of the structure and properties of the earth which will be used as constraints on models related to nuclear test detection and the National Earthquake Hazard Reduction Program.